Conference: 2025 Midwest Robotics Conference

The robotics field is experiencing tremendous growth due to algorithmic and technological advances, the availability of common low-cost sensors and platforms, the standardization of open-source development, and large-scale industrial initiatives. These advancements, coupled with a rapidly growing cohort of talented, highly skilled roboticists, combine to accelerate the transition of robotics from research labs to real-world deployment---reshaping industries, enhancing daily life, and transforming the way we interact with technology in our homes, workplaces, and public spaces. A key driver of this progress is the presence of close-knit communities of robotics researchers and practitioners from academia and industry, who foster collaboration, exchange cutting-edge ideas, mentor the next generation of roboticists, and bridge the gap between fundamental research and real-world applications.

The Midwest Robotics Workshop (MWRW) brings together roboticists from in and around the Midwest, providing a unique opportunity for researchers and practitioners to share their work with others and to network in a focused setting, with the goal of creating a more cohesive and vibrant robotics community in the Midwest. A defining feature of MWRW is its invited talks that showcase senior Ph.D. students and early career (i.e., pre-tenure) faculty, providing them with valuable exposure, increasing the visibility of their work within the robotics community, and offering opportunities to receive insightful feedback from senior researchers. This award supports non-local students in participating in MWRW 2025, which will take place June 2–3, 2025 in Chicago, IL.